CAREER: Empirical Investigations of Software Inspections

This CAREER award supports research and instruction in the empirical evaluation of software inspection methods. Software inspection is a widely used, but very expensive validation process. Initial research has demonstrated that many of the assumptions underlying this process are incorrect and, therefore, this research involves the following three families of experiments. (1) Comparing defect detection techniques. This experiment compares the cost-effectiveness of systematic inspection techniques with that of the standard Ad Hoc and Checklist approaches. Its hypothesis is that systematic inspection techniques are more effective that the nonsystematic ones currently being used. (2) Cost-benefit studies. This experiment is conducted on a live development project to compare the tradeoffs between minimum inspection interval and maximum effectiveness for several different inspection approaches. Its hypothesis is that several recently proposed methods significantly increase interval, but provide only a slight improvement in effectiveness. (3) Inspection entry criteria. This experiment attempts to establish whether or not an artifact's quality affects inspection effectiveness. Its hypothesis is that traditional inspections are not effective for artifacts with very high or very low defect density. This research is also producing materials that enhance both graduate and undergraduate teaching. This includes a 4-week teaching module in which students perform experiments, collect and analyze data, and test hypotheses as part of a graduate software engineering course. An undergraduate software development course is being developed in which all students work together to develop one large-scale application, for real customers with real needs.